I/UCRC Proposal from Rutgers University to Join the Purdue/UConn/Minnesota/Puerto Rico Center for Pharmaceutical Processing

This planning grant is for Rutgers University to become a research site for the Industry/University Cooperative Research Center (I/UCRC) for Pharmaceutical Processing Research. Rutgers will add significant intellectual content to the existing center. The projects focus on understanding granular constitutive behavior for flow and segregation, and on developing a technology platform for pharmaceutical manufacturing, based on continuous manufacturing, that is both more controllable and more flexible than current batch approaches used in the industry.